New Carbon-Carbon Bond-Forming and -Cleaving Organometallic Reactions

The Synthetic Organic Program will support the research of Dr. Ei-ichi Negishi of the Department of Chemistry at Purdue University. Dr. Negishi will continue his innovative studies on organometallic carbon-carbon bond forming reactions catalyzed or promoted by transition metal complexes, especially ones involving zirconium and hafnium. This study includes discovery and development of synthetically attractive new organometallic reactions and exploration of the scope and mechanism of funda- mental organometallic reaction patterns. Dr. Negishi will focus his research in four areas: (1) catalytic reactions of organozirconium and organohafnium compounds, (2) diastereoselective and enantioselective reactions of organozirconium and organohafnium compounds, (3) further exploration of the chemistry of zirconicene and hafnicene derivatives, and (4) stuctural and mechanistic studies of organozirconium and organohafnium compounds. In these studies Dr. Negishi will also systematically investigate the scope of migratory insertion reactions with emphasis on those involving d-block transition metals.